CAREER: A Longitudinal Study of Communication and Biology in Committed Relationships

A critical measure of human physical and psychological health is relationship success. Effective communication has been shown to be a critical determinant of healthy relationships, but that does not translate uniformly across different groups. Researchers acknowledge a number of significant challenges: sampling bias; an overreliance on the use of standardized measures developed among demographically homogenous samples; and the limitations of laboratory settings where couples are studied in brief interactions, and as isolated dyads. Anthropologists conducting ethnographic investigations of human relationships across diverse settings have repeatedly demonstrated that there is no single healthy way to engage in long-term partnerships, further showing that couples might better be understood as always embedded in and affected by complex and heterogeneous processes over time. Ethnographic research has only recently begun to investigate the linkage between such conditions and moment-to-moment biological processes, however, though current work suggests that physiological patterns of coregulation emerging in isolated interactions cannot necessarily be generalized to either a single relationship or to relationships as a general category. The current research thus deploys the theories and tools of biolinguistic anthropology, which has been developed in both pilot and large-scale studies by the PI and colleagues as well as graduate students at the University of Alabama and integrates human biology with ethnographic approaches in anthropology, in order to investigate the ways in which biology and experience co-emerge in moment-to-moment interaction over time. The research will further flesh out the science of emotional and physiological co- and counter-regulation by attending to and identifying specific sources of intra-individual and intra-couple variability over time. These findings will undoubtedly impact the future design of large-scale biolinguistic studies that significantly expand on the validity of laboratory studies of interaction and physiology among partners. As a CAREER project, it further provides funding for the training of both graduate and undergraduate students in methods of empirical, scientific data collection and analysis. Knowledge generated by the research will also be integrated into shareable pedagogy in biolinguistic anthropology; an ongoing, collaborative UA-wide weekly seminar in biolinguistic anthropology; and age-appropriate educational workshops for both UA and the general public, including K-12 educational programs dedicated to helping children learn about the science of communication in local communities.

With the support of a Faculty Early Career Development (CAREER) Award, the researcher will conduct a multi-phase, longitudinal project investigating everyday ideologies of healthy relationships of more than 100 individuals in long-term partnerships in both the U.S. and East Asia. The sampling strategy incorporates several common denominators in order to ensure comparability and generalizability. Specifically, participants must be between the ages of 30 and 60, must live in medium to large urban environments, and must include at least one person works full- or part-time in the high-stress field of civic engagement. Ethnographic, video, and physiological data will be analyzed in an integrated digital platform to yield an empirical understanding of how embodied experience and physiological processes co-occur with communicative encounters at multiple timescales. Findings will not only enrich existing studies on communication, emotion, and health in anthropology, psychology, and related disciplines, but will also contribute to the transformation of theory and method in anthropology through the further development of biolinguistic anthropology as an approach that can be applied to study multiple phenomenon in which researchers seek to investigate the multi-directional and varying processes through which communication and physiological regulation co-emerge in interaction over time.